Analysis and Design of a Viscously-Damped Magnetic Suspension System

The objective of this research is to analyze, design, construct and test a precision, magnetically-suspended, six degrees-of-freedom motion control stage with 1 Angstrom resolution (0.004 micrometer) in a 100 micrometer cube of accessible travel. The suspended platen will be floated in oil to support its weight and provide mechanical damping and high-frequency coupling. Advances will be made in sensors, actuators, precision control algorithms and mechanical design. The research techniques can be scaled, in principle, to larger travels and lessor degrees of freedom, as necessary from the application perspective. This development will enable the enhancement of the performance of many nano-precision devices, in applications such as scanned probe microscopy, X-ray and optical photolithography, diamond tool machining and probing and analysis of integrated circuit devices. These processes are of considerable utility in the manufacturing of a variety of devices and products that are vital to the economy of the nation.